RIA: Application of Holography to Deformation and Surface Roughening

Holographic interferometry will be used to study the formation of surface roughness during plastic deformation of metals. The development of the roughness will be followed in detail for spheroidized 1090 carbon steel and will be related to strain, strain rate and environmental effects, in particular the presence of hydrogen. The technique will subsequently be adapted to the in situ study of roughness development on tribological surfaces.